Planning Grant: Lasers and Plasmas for Advanced Manufacturing

The proposed center plans to create a new technology for materials processing whereby design, analysis and synthesis of materials are integrated to produce material, devices and systems of desired performance. The mission of the center is to develop a fundamental understanding of laser aided intelligent manufacturing to reduce lead-time for "concept to product" manufacturing for U.S. industries by; establishing the science base for laser materials processing; producing materials and devices with novel properties using economical processing methods; transferring this technology to industry by providing a test bed where optimal manufacturing processes and applications can be developed without heavy initial investment by industry; educating university students and industrial personnel in both the basic and cross-disciplinary science and latest technology.

The technical approach of the center will be to develop and deploy atomistic level scientific understanding of laser materials processing for industrial applications. The broader impact of the center is to improve the competitiveness of U.S. industries and by reaching out to the underrepresented minorities; the manpower base of the nation will be significantly enhanced.